Acquisition of a New Geophysics Computer System

0207737
Wiens

This grant supports the acquisition of new computational equipment to upgrade the facility available to the terrestrial geophysics research program at Washington University - St. Louis. Specific equipment to be purchased will include three Sun Fire 280R servers, three Sun Blade 1000 2-processor workstations, 2 DLT-800 tape drives, a color printer, and a Xiotech Magnitude SAN 612 Gb disk array. Much of the current research conducted by the 2 faculty members and 6 Ph.D. research scientists/post-doctoral scientists in this group has become either computationally intensive or storage intensive. Synthetic seismograms, tomographic inversions, and inversions for geomagnetic field variations require processor speeds that exceed current machines. Washington University is also currently involved with four IRIS PASSCAL seismometer deployments which will involve the processing and analysis of about 700 Gb of seismic data. Obtaining a system of fast and reliable machines will allow this program to carry out research in an optimal and productive manner.
***